Gordon Research Conference on Theoretical Foundations of Product Design and Manufacturing; June 11-16, 2000, Plymouth, NH

This award provides support for a Gordon Research Conference on the theoretical foundations of product design and manufactureability. The conference will be held at Plymouth State College in Plymouth, New Hampshire, June 11-16, 2000. It will bring together experts from the fields of engineering design, manufacturing, mathematics, economics, and decision theory. The conference format consists of morning and evening sessions, with afternoons free for small group discussions and poster sessions. In each of the formal sessions, a few brief position papers will be presented, and these will be followed by open discussion. Topics of discussion will include: the state of the art, the role of creativity in design, the role of decision theory in design, the role of mathematical representation and optimization in design, validation of design methods, implementation of design theory and design tools, integration engineering, and distributed design.